Americas Program: The Extended Loop Representation of Quantum Gravity

9406269 Pullin This Americas Program award will support a collaborative research between Dr. Jorge Pullin, The Pennsylvania State University and Professor Rodolfo Gambini, Universidad de la Republica, Montevideo, Uruguay, on the application of loop techniques to the quantization of general relativity. The objective is to study the extended loop representation of quantum gravity in which loops are replaced by extended objects which help deal with regularization issues, and, to analyze the equivalence between the connection and group representations. They also propose to study the underlying classical canonical theory, which has potential to become a useful reformulation of classical general relativity. The concept of reconciling general relativity and quantum mechanics is one of the most intractable of modern theoretical physics. The need for a quantum theory of gravity is clear, both on theoretical grounds and for practical purposes, but, so far, all straightforward attempts to quantize general relativity have failed. This proposal will focus on a new approach to this problem, derived from the recent discovery of new loop variables and the reformulation of general relativity as a theory of connections. This is an important research that will benefit greatly from the complementary expertise of the researchers, and that is likely to have a substantial impact on progress in quantum gravity. ***